2000 Midwest Thermodynamics and Statistical Mechanics Conference, University of Minnesota

ABSTRACT
CTS-0002653
J. I. Siepmann and R. B. Clurg
U. of Minnesota

The purpose of the Midwest Thermodynamics and Statistical Mechanics Conference is to bring together researchers in the areas of thermodynamics and statistical mechanics in the Midwest area for the exchange of ideas and most recent research results. It is particularly designed as a platform for young researchers (graduate students and young faculty members) to gain confidence and experience in presenting and discussing their ideas and research accomplishments.

The 2000 Conference will be held May 15-16, 2000 at the Minnesota Supercomputing Institute, University of Minnesota, Minneapolis. The four sessions include: Phase Equilibria Adsorption, Macromolecules and Colloids, and Biological Systems. The conference participants will come from the fields of chemical engineering, chemistry, material science and physics